TRP: An ATM Interoperability Testbed for the National Information Infrastructure

NCR-9520963 Kenneth Young Bellcore, Tektronix, the Joint Interoperability Test Command (JITC), and the University of Pennsylvania will implement an ATM Interoperability Testbed to develop tools, procedures, and standards that promote interoperability among ATM products. The project will include three key areas of ATM technology for the development of interoperability testing systems. These areas are 1) ATM signaling Interoperability, 2) ATM traffic management interoperability, and 3) higher-layer protocol interoperability. These areas are chosen because standards for signaling, traffic management and higher layer protocols (e.g. Internet Protocol- IP) as they related to ATM are maturing rapidly and will be implemented in products in a time frame that is consistent with this project's research and development.